SGER: Proposal for Research on DNA Based Computation

This Small Grant for Exploratory Research (SGER), funded by the Informations Technologies Office, DARPA, addresses the following problems in the new area of Biomolecular/DNA Based Computation:(a) Determining correct models for biomolecular/DNA computations;(b) Developing techniques that make biomolecular/DNA computations error tolerant;(c) Determining a set of ``practical'' solution techniques for certain NP-hard problems (such as, breaking DES cypher and ``accurate'' pattern matchings for the human genome project) that exploit the massively parallel biomolecular/DNA computations. One of the goals of this SGER project is to initiate and develop collaborative efforts with the Biochemistry Department at Princeton University.***